Modeling Mechanical Cell-Matrix Interactions in Articular Cartilage

Haider
0211154
The investigator is developing multiphasic models for
mechanical interactions between the cells and extracellular
matrix in articular cartilage. A combination of analytical and
numerical methods are used to solve: (1) contact problems that
model experiments used to determine mechanical properties of
isolated cell (chondrocyte) and cell-matrix (chondron) units, (2)
interface problems that model local cell-matrix mechanics of the
chondron in vivo, and (3) fast boundary integral models for
transmission of mechanical signals in a tissue layer populated
with many cells. Through collaboration with an orthopaedic
research lab, the models developed by the investigator are being
applied to: (a) the determination of material properties of cell
and tissue explants using in-vitro micropipette testing and video
microscopy, and (b) the simulation of local cell-matrix mechanics
and comparison to confocal microscopy of dynamic loading in a
tissue layer. A fundamental goal of this project is to quantify
the dependence of local cell mechanics on external loading. By
correlating experimental measurements of cell metabolic activity
to mechanical components of the local cell environment, the
complex relationship between tissue metabolism and cell mechanics
is analyzed. Variations in chondron material and geometric
properties, within and across a variety of tissue populations,
are also incorporated into the models. This project contributes
to understanding of the role of mechanics in maintenance of the
extracellular matrix, and associated matrix degeneration with
aging due to osteoarthritis.
Articular cartilage is the primary load-bearing tissue in
joints such as the knee, shoulder and hip. Degeneration of
cartilage leads to osteoarthritis, a painful condition that
affects millions of Americans and is predominantly associated
with aging. Under repeated loading, the structural matrix of
cartilage is in a continual state of turnover that is regulated
by specialized cells called chondrocytes. These cells synthesize
matrix components yet, remarkably, have no neural connection to
the brain. As a result, cell metabolic activities directed at
repairing the structural matrix are highly dependent on the local
cell environment. In this project, a mathematical modeler
collaborates with an orthopaedic research lab to understand the
role of mechanical forces in the maintenance of cartilage. At
the cellular level, forces in cartilage result from a complex
coupling of solid and fluid mechanics with energy dissipation.
Results of this work predict the dependence of local forces at
the cellular scale on external loading. Local force predictions
facilitate a quantitative description of the complex relationship
between cell metabolic activity and cell mechanics. In
conjunction with associated experiments for a variety of tissue
populations, the models lead to an understanding of how these
remarkable cells can maintain cartilage over the course of a
lifetime, and how structural degeneration of cartilage is
initiated in osteoarthritis.